Oceanographic Instrumentation - 2010

A request is made to fund additional and back-up instrumentation on the R/V Atlantis, a 274’ general purpose Global vessel; the R/V Knorr, a 279’general purpose Global vessel; and the R/V Oceanus, a 177’, general purpose, Intermediate vessel. All three vessels are operated by Woods Hole Oceanographic Institution as part of the University-National Oceanographic Laboratory System research fleet. The request includes four items listed by priority:
1) LADCP Instruments
2) SWR/LWR Met Sensors
3) Soutar Box Core
4) Knudsen 3260 Echosounder
5) SBE 19+ CTD
6) Multi-Channel LSC

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.